Technical Support for the Minnesota Isotope Laboratory

9712037 Edwards This grant provides $100,000 as two-years partial salary support for two technicians at the University of Minnesota to oversee operations and maintenance and train new users in geochemical separations and mass spectrometric techniques utilizing the five mass spectrometers (gas, ICP-sector and thermal ionization) in the Minnesota Isotope Laboratory. This is a Phase II grant for technical support under the IF/EAR program. With the recent addition of three new mass spectrometers to this facility as the result of an ARI award (EAR-9512334), this laboratory is one of the largest and well equipped mass spectrometry facilities in the U.S. The continuation of adequate technical support will enable these PI's to fully utilize the capabilities of the state-of-the- art mass spectrometers employed at Minnesota for studies utilizing high-resolution isotopic records recorded in marine and lacustrine carbonates for interpretation of global and regional climate change and paleoenvironmental conditions. Other studies will further contribute to the refinement of the Quaternary chronology of global sea level changes related to glaciation/deglaciation events. ***